Workshop on Future Directions of Automated Deduction, March 2-3, l996, Chicago, IL

9625544 Loveland This workshop will assess the achievements, opportunities and goals of the field of automated deduction. Some key researchers of the field and a sample of users of the technology will be assembled to address in particular the impact of automated deduction on other fields, present and future. This workshop will produce reports to NSF and the larger scientific community, identifying the major accomplishments, and discussing future directions, for the automated deduction field. ***